Workshop on Electromagnetic Crystal Structures, Design, Synthesis, and Applications, Laguna Beach, California

Proposal Number: ECS-9816964

Principal Investigator: Axel Sherer

Title: Workshop on Electromagnetic Crystal Structure, Design, Syntheses, and Application

Abstract

This meeting will provide a forum for the university researchers and industry developers to discuss and explore the emerging concepts of photonic band structures and to exchange the latest technical information and applications. The early work on photonic band structure mainly focussed on the creation of artificial crystals made of dielectric materials for optical wavelengths. This workshop will extend the concept to radio and microwave regions, and to include metal in dielectrics. Potential applications may include small antennas and nanocavities for very short wavelengths.